High School Teachers Engineering Program

The University of Wyoming will conduct the High school Teachers Engineering Program (HISTEP), a three week, residential summer program beginning in 1991. This three year program is designed to help recruit students for engineering careers by enhancing the capabilities and enthusiasm of mathematics and science teachers. HISTEP provides thirty high school mathematics, chemistry, and physics teachers with the opportunity to explore engineering applications in a laboratory setting. The laboratory sessions offer both enrichment opportunities for experienced, enthusiastic teachers and opportunities to expand subject matter content for less well-prepared teachers. The teachers will build a digital circuit, smash timber trusses, and design with computer assistance, all engineering applications which directly relate to topics typically covered in high school mathematics, physics, and chemistry courses. The engineering faculty conducting the laboratory sessions will participate in a learning strategy seminar, and will apply these teaching methodologies to their laboratory sessions. Faculty knowledgeable in effective science teaching practices will conduct the seminars, and will also assist the participants in developing instructional materials for their classrooms. The sessions will enhance the teachers' creative thinking and problem solving skills and establish an appreciation for the role of science in our society, consequently benefiting both technically oriented students and those pursuing nontechnical careers. The sessions, covering a wide variety of scientific topics with a significant level of participation, are intended to create a high level of interest among the participants. The diversity of the program provides a unique, and stimulating, experience for professional growth. The participants will conduct workshops/demonstrations for colleagues in their school district and for parent groups. The engineering faculty from the Wyoming community colleges are available for assistance with the workshops. HISTEP participants will attend an annual meeting where they will have an opportunity to discuss the implementation of their summer activities, their successes, their failures, and the assessment data on their students' problem solving skills. Cost sharing equals 45% of the NSF award.